Collaborative Research: CubeSat Ideas Lab: Space Weather Atmospheric Reconfigurable Multiscale Experiment (SWARM-EX) CubeSats

CubeSats are miniaturized, low-weight, low-cost satellites. Due to these properties, constellations of 10s-100s of CubeSats with specialized instruments for studying the space environment provide a new exciting opportunity to understand and predict space weather. The Space Weather Atmospheric Reconfigurable Multiscale Experiment (SWARM-EX) project provides an important step in the advancement of designing and building CubeSat constellations for space weather. SWARM-EX will consist of three identical CubeSats with novel technologies for radio communications between satellites, onboard propulsion, advanced data downlinks, and autonomous operations within the constellation. Each satellite will measure ionized and neutral gases in the Earth's upper atmosphere, studying structures seen near the equator. The SWARM-EX mission uniquely fosters opportunities for STEM education and enables a platform for public outreach. SWARM-EX will establish the first Intercollegiate CubeSat Mentoring Program - partnering institutions that have established CubeSat programs with new programs to create long-term, project-based learning environments across the nation. Teaching, training, and learning will also be advanced through the inclusion of multiple graduate students, and undergraduate students from the six geographically distributed university programs involved in SWARM-EX. This project resulted from the Ideas Lab: Cross-cutting Initiative in CubeSat Innovations, an interdisciplinary program supported by Geosciences, Engineering, and Computer and Information Science and Engineering Directorates.

SWARM-EX is a bold step towards addressing outstanding aeronomy questions achieved through a global constellation of CubeSat swarms making in-situ ionospheric and thermospheric measurements between 300 and 600 km altitude. The CubeSats in each swarm will range in separation from 1 to 1000 km and this separation will be controlled by a combination of differential drag and onboard propulsion. A pathfinder mission, supported by this project will use 3 identical CubeSats to demonstrate the SWARM-EX key technologies and address scientific questions related to the evolution of the equatorial ionization anomaly (EIA) and equatorial thermospheric anomaly (ETA). The specific aeronomy questions are 1) How persistent and correlated are the plasma density and neutral oxygen in EIA and ETA features?; 2) Over what timescales, less than 90 minutes, do we observe changes in EIA/ETA properties due to non-migrating tides and geomagnetic activity? These CubeSats will demonstrate novel technology including RF cross-links, propulsion, CDMA X-band data downlinks and on-board autonomy. Additionally, each CubeSat will include an atomic oxygen sensor and Langmuir Probe thus making the measurements required to answer the proposed science questions.